US-Australia Cooperative Research Development of Solgel derived Monosized Oxide Nanoparticles

This award provides funding to the University of Central Florida, under the direction of Dr. Sudipta Seal, for the support of an international research collaboration entitled, "U.S.-Australia Cooperative Research Development of Solgel Derived Monsized Oxide Nanoparticles." This three year collaboration between student and faculty researchers at the Advanced Materials Processing Analysis Center/Mechanical, Materials and Aerospace Engineering at UCF and Materials Science and Engineering research groups at the University of New South Wales, Sydney, Australia will help establish a joint international research program in nanotechnolgy research which is proving to be one of the most promising frontiers in scientific research and development.